Time-resolved X-ray Studies of Kinetics of Metastable Materials

The use of materials in metastable states is becoming very pervasive in many technological applications. Very often the atomic arrangements in such cases have intermediate-range order somewhat characteristic of crystalline structure but they are not in true thermodynamic equilibrium. The kinetic behavior of metastable structures, and especially their relation to the equilibrium long-range ordered state, is quite poorly understood at present. There has been substantial progress in the theory of non-equilibrium processes using the concepts of kinetic critical phenomena, but little experimental work which probes directly the microscopic mechanisms. We propose a thorough study of this area utilizing powerful ne techniques in time-resolved x-ray diffuse scattering. The research exploits the recent developments in x-ray sources (very brightness synchrotron radiation) and detectors (fast two- dimensional CCDs) which are expected to revolutionize time- resolved studies. The goal of the research is to identify universal features of the kinetics which can be incorporated into a general quantitative description of non-equilibrium structural processes. Two model systems have been chosen for these studies; the research will focus on the rapid thermal annealing of thin- film heterostructures which have important optoelectronic applications, and the growth and relaxation mechanisms of electrochemically deposited dendrites and thin film structures.